Travel: 2026 Hilton Head Solid-State Sensors, Actuators and Microsystems Workshop

The 2026 Hilton Head Solid-State Sensors, Actuators and Microsystems Workshop (HH2026) is a prominent conference in the field of microsystems, particularly the micro-electro-mechanical systems (MEMS) microsystems, as well as their applications. It is the 22nd in the series of Hilton Head Workshops and is expected to draw close to 500 attendees with various engineering and scientific backgrounds (electrical engineering, mechanical engineering, materials science and engineering, biomedical engineering, chemical engineering, chemistry, physics, biology, etc.) from academic, industry, and government. HH2026 will have a focus on design and manufacturing of new devices and microsystems including sensors, actuators as well as emerging applications in biosensing, computing, and communication. Special topic sessions will further focus on AI and machine learning for digital twins and MEMS engineering. These cutting-edge research areas are aligned with NSF priorities in AI, microelectronics and semiconductor, advanced manufacturing, and biotechnology.

The Hilton Head Workshop will be held in Hilton Head Island, South Carolina on May 31 - June 2, 2026. To support the training of the next-generation scientists and engineers working in this critical research field, this NSF travel grant will provide travel support for 25 U.S. students or post-doctoral researchers to attend and present their papers at the workshop. Their participation in the workshop will enable them to learn the newest research and development trends in MEMS microsystems as well as provide them excellent networking opportunities through various events to interact with senior researchers in this field. This travel grant will contribute to the U.S. STEM workforce development and have long-term and broad impacts on the career developments of participating students and postdoctoral researchers.